U.S.-Argentina Cooperative Research on General Relativity

This award from the U.S.-Argentina Cooperative Science Program supports cooperative research in physics to be conducted by Dr. Ezra T. Newman of the Department of Physics and Astronomy at the University of Pittsburgh and Dr. Karlos Kozameh of the faculty of Mathematics, Astronomy and Physics at the University of Cordoba, Argentina. The focus of the project is to probe a novel and unconventional viewpoint towards geometry and the Einstein field equations of general relativity. The research relies on the reformulation of general relativity that allows the equations to be split into two parts, where one part allows the D'Adhemar-like formulation while the other part yields equations for the determination of the light cones. The award will foster continuation of a productive U.S.-Argentina collaboration.